Physics of Compact Stars

9315375 Wasserman Research on the physics of compact stars will be continued by a team of researchers with many years of experience in this field. Topics to be addressed include a Bayesian analysis of ray burst statistics, the production of cyclotron lines from relativistic flows, baryonic matter in the galactic halo, x-ray emission from slowly accreting neutron stars, explosions of neutron stars near minimum mass and the formation of brown low mass dwarfs by slow accretion. ***